Geometric and Analytic Problems in Several Complex Variables

One of the basic geometric and analytic problems in several complex
variables is to determine when two real submanifolds in
multidimensional complex space are locally biholomorphically
equivalent. That is, when is it possible to find a local invertible
holomorphic transformation sending one submanifold onto the other?
This problem has attracted the attention of many mathematicians since
the beginning of the twentieth century, starting with the work of
Poincare and continuing with the major contributions of E. Cartan,
Tanaka, Chern, Moser and others. The principal investigators will
continue their research on several aspects of this problem. In
particular, they will focus on determining when it is possible to
reduce the biholomorphic equivalence problem to solving systems of
polynomial equations with complex coefficients. They also plan to
determine when a formal mapping sending a real submanifold into
another is necessarily convergent. In addition, they will attempt to
categorize those submanifolds for which such mappings are determined
by finitely many derivatives at a given point. They expect that this
study will lead to the discovery of new geometric, analytic, as well
as algebraic invariants of these submanifolds.

The Principal Investigators will continue their study of fundamental
properties of analytic and geometric objects, such as surfaces and
curves, in multidimensional complex spaces. A complete classification
of these mathematical objects can have important implications for a
number of other questions in mathematical science. In fact, this
study is motivated by the rich interplay between several areas of
mathematics and physics, including control theory, string theory, and
other areas of mathematical physics. Progress on the problems
proposed by the Principal Investigators will likely have impact on
the above-mentioned areas as well.